An Integrated Program of Cosmological Research and Education

Prop: AST-0104465
PI: Coble, Kimberly

Dr. Coble is awarded an NSF Astronomy and Astrophysics Postdoctoral Fellowship to carry out a program of research and education at the University of Chicago. Her research program centers on measurements of the Cosmic Microwave Background (CMB) which will test the standard theory of structure formation in the early universe. Her observations will be made with the Degree Angular Scale Interferometer (DASI), which is currently operating at the South Pole Station. DASI will be used to measure the as yet undetected polarization of the CMB, and following a planned upgrade will be used to observe smaller angular scales as well as the Sunyaev-Zel'dovich effect in galaxy clusters. Dr. Coble's educational program will be carried out at the Adler Planetarium and Astronomy Museum, where she will teach courses on astronomy and cosmology, and establish a communications link to the South Pole while she is conducting research.

***